An Urban Environmental Program for Middle and Junior High School Teachers

The request is for a renewal of CUNY's Urban Environmental Program for Middle and Junior High School teachers. The present version seeks to train 50 middle and high school teachers (at least half of which will represent minorities and most of which are disadvantaged) in the New York City metropolitan area. The project will focus on "Energy and Environmental Control" and will utilize previously-developed materials to (i) allow teachers to master the subject, (ii) acquire techniques for the teaching of urban environmental studies to children and adolescents, (iii) implement environmental science curricula in the classroom (including computer-based materials), (iv) develop appropriate environmental science activities for their classes, (v) inculcate in the participants a sense of excitement about scientific investigations in general, and to (vi) provide the participants with problem-solving experiences in science. An amount equivalent to 76.10% of the NSF award is being contributed by CUNY-Hunter College and other sources.